CAREER: Designer Proteases Using Catalytic Antibodies

9502901 Sierks This project is on research to develop a methodology for the selection of catalytic antibodies with specific protease activity. This research combines a new technology of phage display for generation of a large number of antibody sequences with a novel selection methodology employing peptidase deficient auxotyphoic strains of s. typhimuvium where only those cells possessing antibodies having the desired protease activity will grow. The results of this research could have important applications in medicine and in industry. ***